Computational framework for identifiable and phase-consistent allele-specific expression quantification

Haplotype inference and allele-specific transcript expression quantification are two fundamental
problems in genetics and genomics. Haplotype inference aligns maternal and paternal alleles of
genetic variants along two diploid chromosomes, whereas allele-specific expression
quantification obtains the expression levels of transcripts of maternal and paternal origins from
RNA-seq reads. These two problems are coupled in that one can affect the accuracy of the
other: accurate allele-specific expression quantification requires accurate haplotypes to map
RNA-seq reads to and the accuracy of haplotype inference can be enhanced by allele-specific
RNA-seq reads. While existing works have considered these two problems separately, this project
develops a computational framework to address these two fundamental problems jointly in a
single statistical framework to enhance the accuracy of both inferred haplotypes and
allele-specific expression quantification. The computational methods to be developed in this
research will advance various aspects of biological research that require accurate allele-specific
expression estimates and haplotypes, including mapping allele-specific eQTLs, detecting
imprinted genes, imputing untyped variants, finding signatures of natural selection, and
detecting recombination events. The outcome of the research will be used in outreach activities
in minority serving institutions to recruit graduate students.

The project develops a computational framework for obtaining accurate allele-specific
expression measurements and haplotypes from RNA-seq and genotype data. Two existing
frameworks, one for transcript expression quantification and the other for haplotype inference
(e.g., Beagle), are combined into a single framework, while keeping the computational efficiency
of the original frameworks. Each of these two existing frameworks is modified to address two
previously-unmet challenges regarding allele-specific reads: for the RNA-seq quantification, the
project develops a mathematically rigorous approach to obtaining identifiable allele-specific
expression estimates at gene level, at transcript-set level, or at individual transcript level,
whereas for haplotype inference, the project couples the model in Beagle with RNA-seq
quantification methods of these investigators to jointly estimate identifiable allele-specific expression levels and
haplotypes that are consistent with each other. The computational methods are benchmarked
on allele-specific eQTL mapping, using genotypes and RNA-seq reads from human trios and
LG/SM intercross mice with known haplotypes. The outcome of the research is available at
http://www.cs.cmu.edu/~sssykim.